Studies of atomic quantum spin systems in optical lattices

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

Quantum spin systems are an important topic in condensed-matter, statistical and mathematical physics, and form basic building blocks in quantum information science. This ultracold-atomic physics project focuses on the implementation of quantum spin-1/2 systems using arrays of coupled two-state atoms in an optical lattice with tunable parameters. The main goal of the project is an investigation of equilibrium phases and spin dynamics in this atomic system, based on the development of a tool for the preparation of arbitrary initial spin configurations. The project will be carried out with a Bose-Einstein condensate of rubidium-87 atoms.

The realization of quantum spin systems with precisely controllable parameters can be expected to have broad scientific and technological impact. The project will advance the state of the art in the manipulation of strongly correlated quantum gases, and it will also provide scientific and technical training to both graduate and undergraduate students who will gain proficiency in the enabling technologies of lasers and optics, ultrahigh vacuum, and electronics. In conjunction with the project, the PI is developing a graduate-level course on ultracold quantum gases which will include laboratory visits and demonstrations.